Collaborative Research: Local Newforms for GSp(4)

This research is about a theory of new- and oldforms for irreducible
admissible representations of the algebraic group PGSp(4,F), for F a
nonarchimedean local field of characteristic zero. The first objective
of this research is to prove the main conjecture, supported by
extensive evidence, which asserts that a generic representation admits
a nonzero vector fixed by a paramodular group of some level; that at
the minimal level such a vector is unique up to nonzero scalars; and
that at the minimal level a suitable normalization of such a vector,
called a newform, computes the L-factor of the representation. The
second objective is to prove a precise conjecture about the structure
of the spaces of oldforms in a generic representation, i.e., the spaces
of vectors fixed by paramodular groups of level exceeding the minimal
level. The third, and final, objective is to investigate whether a
version of the main conjecture holds for nongeneric representations at
the level of L- or A-packets.

Briefly summarized, number theory is the part of mathematics concerned
with the study of integral solutions to algebraic equations. Though the
problems of number theory often can be simply stated, solutions may
require extensive theoretical development and input from other parts of
mathematics. Broadly characterized, this research seeks to tie
together, in a useful and new way, two parts of number theory. The
first part, the theory of automorphic representations, allows the
formulation of comprehensive conjectures and proofs; however,
automorphic representations are abstract. The second part, the theory
of Siegel modular forms, is important for examples and applications; on
the other hand, Siegel modular forms can hide important general
phenomena. By developing the theory of local new- and oldforms for
PGSp(4) this research will make it easier to systematically and
conceptually construct Siegel modular forms from automorphic
representations, and thus may lead to work that draws on the strengths
of both theories. This research crosses several subdisciplines of
mathematics, and to facilitate this and other work this project will
create a freely accessible database on the World Wide Web about the
existing literature on GSp(4).